Purchase of a Gas Chromatograph/Mass Spectrometer

The Gas Chromatograph and Mass Spectrometer (GC/MS) system separates mixtures of volatile compounds and identifies the masses of each separated component. The GC/MS is essential when there is a need to quantify soluble compounds found in dilute solutions. The GC/MS is useful in areas such as chemical synthesis, kinetics and structural analysis. This award from the Chemistry Instrumentation Program to the Department of Chemistry at University of Utah will help acquire a GC/MS system. The acquisition will enhance the ability of the Department to educate students and will enhance chemical research in the following areas: 1. Studies of Isoprene Metabolism 2. Synthetic and Mechanistic Organometallic Chemistry 3. Oxy-Allyl Zwitterions Via Pyrone Photochemistry 4. Synthetic and Mechanistic Organic Chemistry 5. Synthetic and Mechanistic Inorganic Chemistry 6. Synthesis of Natural Products